5th International Congress on Tribology Trip

International travel support is provided to allow the the P.I. to attend the Fifth International Conference on Tribology which will be held in Helsinki, Finland during June 12-15, 1989. The purpose is to present a paper entitled "A Modified Microcontact Model Including Dynamic Effects" and to enhance international exchange of tribological research information.